Group Travel for U.S. Participants in the Fifth SCAR Symposium on Biology

The fifth SCAR (Scientific Committee on Antarctic Research) symposium on biology will be held 29 August-3 September, 1988 in Hobart, Tasmania, Australia. The symposium theme is concerned with short- and long-term changes in ecosystem and community structure and function caused by natural and man-induced factors. Specific consideration to natural factors that induce change such as climate change, volcanic activity and exposure of land by ice retreat will be considered in the symposium. Insight into the ecological processes that occur in changing environments is particularly important in the development of monitoring programs for sound conservation policies. The SCAR biology symposia are the only conferences of their kind and occur at intervals of about six years. This group travel award will allow for attendance by United States scientists and is consistent with U.S. policy in the Antarctic in the maintaining of an influential research presence in Antarctic affairs.